Enhanced Laboratory Undergraduate Instruction in Physiological Psychology Using Invertebrate Models and Non-Invasive Techniques

9451027 Chao Psychology and other disciplines have faced criticism and sometimes illegal activities directed at their use of vertebrate animals in research. Reactions often involve new and more restrictive guidelines for the care and use of laboratory animals. Also, the implementation of these guidelines and the increased measures necessary to guard against vandalism require substantial expenditures of scarce funds. This project therefore supports an introductory undergraduate physiological psychology laboratory which uses simple invertebrate preparations and psychophysiological experiments. Basic computer equipment and accessories are used. Demonstrations illustrate a variety of neurophysiological phenomena, and undergraduates learn different electrophysiological and psychophysiological techniques. Given the continued controversy over the use of vertebrate animals in teaching and research, it is also expected that many departments of psychology and biology will find this approach to the undergraduate study of neuroscience valuable.